Mathematical Sciences: Non-Linear Problems in Differential Geometry and Mathematical Physics

David Hoffman and Joel Spruck will conduct research on a variety of problems in differential geometry and mathematical physics. Hoffman will study the behavior of properly embedded and immersed minimal surfaces in three dimensional space and construct new families of examples. Particular emphasis will be placed upon the development of methods of construction of examples, computation relevant to problems in the subject, and on understanding the global behavior of properly embedded examples of finite type and periodic examples. Spruck will study variational problems with a large number of constraints which arise naturally in plasma physics and other fields. Particular emphasis will be placed on constructive methods of solution that are suitable for large scientific computation. He will also study several important geometric problems which are strongly related to his research on semilinear equations.